Developing Parallel Tools That Meet User Requirements Proposal to Fund Academic Participation

9412798 Pancake This proposal requests support for academic participation at the first General Meeting of the Parallel Tools Consortium, to be held in early June of 1994. In addition to general discussions of the Consortium's goals, directions, and projects, the 2.5-day meeting will include a series of breakout sessions where joint tool projects will serve as the impetus for structured dialogue between tool developers and tool users.